Plant Growth Core Facility at Yale

This award provides funds for the construction of a greenhouse and for the refurbishment or acquisition of other equipnment needed for the growth and experimental manipulation of plants. The equipment will facillitate the undertaking of long term experiments that require the growth of plants or (plant) tissue cultures under well-defined conditions of temperature and light. The recent development of techniques that permit studies of the structure and regulation of genes at the molecular level has stimulated renewed interest in studies of plant gene regulation and plant development, and has added a new dimension to the study of plant genetics. Frequently, a crucial element in such studies is the ability to grow large numbers of plants under highly controlled conditions of light and temperature. Furthermore, the use of plant tissue cultures in such studies requires not only well controlled growth facilities but, in addition, the use of aseptic work areas that permit innoculation and transfer of cultures without the risk of cantamination by bacteria and fungi. The greenhouse and related equipment purchased through this award will satisfy these requirments for a group of outstanding plant scientists at Yale University.